International Workshop on Numerical Methods for Structured Matrices in Filtering and Control to be held August 1-3, 1996 in Santa Barbara, CA.

9632919 Sayed The proposal is for an international workshop on "Numerical Methods for Structured Matrices in Filtering and Control" to be held in Santa Barbara CA, from August 1 to August 3, 1996. The conference is jointly organized by Stanford University and the University of California, Santa Barbara (UCSB), in cooperation with the Center for Control Engineering and Computation, UCSB. The workshop is planned to comprise a series of invited presentations by frontline researchers in the areas of filtering, control, and numerical analysis. One of the primary objectives of the workshop is to bring together leading researchers in these areas to discuss recent advances and future directions in the design of fast and numerically reliable algorithms for structured matrices arising in filtering and control applications. ***